Kinetics of Growth And Product Formation In Hairy Root Cultures

The Principal Investigators (PIs) plan to investigate the kinetics of growth and thiophene production from fast-growing hairy root cultures of the Tagetes species (marigolds). Thiophenes are sulfur derivatives of polyacetylenes, and are found mainly in the roots of these plants. Recent findings suggest that they may play a role in protecting the plant from phytopathogenic fungi, insects, and nematodes. Thiophenes may, therefore, provide an environmentally safe alternative to conventional pesticides. The objectives of this project are to: - Formulate and solve mathematical models of biomass growth and thiophene accumulation in hairy root clones of the Tagetes species. - Determine kinetic parameters in these models from growth data of elicited and non-elicited Tagetes hairy root clones cultured in shake flasks. - Test the validity of various models by comparison with growth data from bioreactor grown roots and to optimize the bioreactor performance using the best mathematical models.